Geometric Structure in Geographic Information Systems and Molecular Modeling

CCR-9988742
Jack Snoeyink
University of North Carolina at Chapel Hill

This is a grant to apply computational geometry to Geographic Information Sciences.
Specific areas include arithmetic precision in geometric algorithms, generalization
aspects of geometric partitioning, and optimization in large datasets.